Analytic Information Theory, Combinatorics, and Algorithmics: The Precise Redundancy and Related Problems

Information theory has enjoyed over fifty years of rigorous research,
development, and application.
In spite of its relative maturity,
new challenges arise due to novel applications and emerging theoretical
developments (e.g., there is a resurgence of interest in source
coding in multimedia applications, molecular biology, and security).
In the 1997 Shannon Lecture Jacob Ziv
presented compelling arguments for ``backing off'' to a certain extent
from first-order asymptotic analysis of information
systems in order to predict the behavior of real systems with
finite (and often small) lengths (of sequences, files, codes,
databases, etc.) One way of overcoming these difficulties is to
increase accuracy of asymptotic analysis by replacing first-order
analyses (e.g., a leading term of the average code length)
by full asymptotic expansions and more
accurate analyses (e.g., large deviations, central limit laws).

This research primarily focuses on an important aspect of
source coding, namely, the redundancy rate problem.
Recent years have seen a resurgence of interest in
redundancy rates of lossless and lossy coding.
We describe analytic, combinatorial and algorithmic methods that
work hand in hand to solve this and other problems in information theory.
The redundancy rate problem for
a class of sources corresponds to determining the extent to which
the actual code length exceeds the optimal code length.
This problem is an ideal candidate
for second-order asymptotics
since one must look beyond the leading term of the code length,
which is known to be the entropy of the source.
Following Hadamard's precept we study these problems using
techniques of complex analysis such as generating functions,
Rice's formula, Mellin transform, Fourier series,
sequence distributed modulo 1, saddle point methods,
analytic poissonization and depoissonization, and
singularity analysis. We present new results for
well-studied problems (e.g., optimal codes for maximal redundancy,
memoryless and Markovian sources) as well as novel formulations of old problems
(e.g., redundancy of the class of mixing sources, redundancy of
arithmetic coding and the Lemepl-Ziv codes). Furthermore,
we apply the techniques developed as a part of this study
to related problems such as prediction (based on pattern matching),
random number generators, the average worst case probability of
undetected error in channel coding, pattern matching approach to
(exact and approximate) run length coding, and others.